Mathematical Sciences: Harmonic Maps, Locally Symmetric Spaces, and Foliations

The investigator proposes studying questions concerning superrigidity of lattices in semi-simple Lie groups using techniques of harmonic maps. Further work is intended on non- abelian Hodge theory to quasiprojective varieties and cohomology of foliations.